52nd Session of the International Statistical Institute, Helsinki, Finland, August 10-18, 1999

9820015
Waller

This award provides travel support for approximately 20 U.S.
participants to the 52nd Biennial Session of the International
Statistical Institute, held in Helsinki, Finland, from
August 10-18, 1999. This premier statistical international
conference jointly hosts the Bernoulli Society, the
International Association for Official Statistics (IAOS),
the International Association for Statistical Computing (IASC),
the International Association of Survey Statisticians (IASS)
and the International Association for Statistical Education (IASE).
The grant will provide partial support to defray transportation
costs for individuals selected by a committee appointed by the
ASA president, with emphasis on newer faculty (within 10 years
of degree) and women and minorities.